U.S.-Argentina Cooperative Research on Determining Tectonic Subsidence History from Chronostratigraphy of Non-Marine Foreland Basin Strata, San Juan, Argentina

This award supports cooperative research on tectonic subsidence history between Dr. Teresa Jordan of Cornell University and Dr. Felisa Bercowski of the National University of San Juan, Argentina. The history of Andean mountain building in the late Cenozoic period is contained in exposed strata in the San Juan province in Argentina. This stratigraphic record was influenced by tectonic processes which can be interpreted by modern techniques such as magnetic polarity stratigraphy and fission track dating. Information will be extracted from existing chronological studies and will be coupled with petrographic, diagenetic (physical and chemical changes since deposition), and facies (appearance and composition) studies. Professor Bercowski will study theory and application of data analysis methods which will be applied in her laboratory. Prof. Jordan will have the opportunity to work with a geologist living in a natural geological laboratory. This collaboration provides an opportunity for both scientists to study Cenozoic non-marine stratigraphic and tectonic history as well as those of the Carboniferous and Cambrian ages. This grant is supplemental to funding provided by the Earth Sciences Division of NSF and extends the international cooperation between Dr. Jordan and Dr. Bercowski.